Connection to NSFnet

Dartmouth College has several researchers who would benefit from access to supercomputing. Through this grant for connection to NSFNET, they will be able to access six federally-funded supercomputing centers which are linked by the National Science Foundation Network (NSFNET). The campus will be connected by a medium speed (56,000 baud per second) communication line to the JVNC network as part of a New England extension to their already existing consortium network. This communication line as well as the gateway/router will be provided by the John von Neumann Center through a supplemental grant to their current award. Network management and information services will also be provided by JVNC.